Inuit Knowledge of Climate and Climate Change in the Eastern Canadian Arctic

Barry, Fox
OPP-9906740

This project addresses the questions: What do the Inuit know about climate and climate change and how do they construct this knowledge? How can Inuit climate knowledge and scientific research be integrated to further understand Arctic climate processes and the potential impacts of change on the Arctic environment and human settlements? A multi-method approach, using content analysis, charting with map overlays, open-ended interviews, and participant observation, will be used to document Inuit climate knowledge. Scientific record and Inuit testimony will be matched regarding climate and ice anomalies in the Eastern Canadian Arctic. Elders and hunters at four settlements (and local hunting camps) will work with the co-PI to interpret Inuit climate knowledge. Information collected will be used to develop a model that includes appropriate methods for data sharing and knowledge dissemination.